Engineering Research Equipment Grant: Advanced Combustion Diagnostics

A pulsed Nd:YAG laser and an image intensified digital camera with charge-coupled device detectors are to be used to develop the capability to measure concentration and temperature in flow systems through planar imaging. The primary objectives of the research are to establish a data base for combustion control and for burner stability. A secondary use is to develop the Exciplex technique for liquid and vapor imaging and analysis applied to droplet sizing. Laser-induced fluorescence detection of OH, CH, and C2 in gaseous flames will be made possible by coupling of the ND:YAG laser to an existing dye laser. The digital camera will record the LIF image and will also be used to record multiple point temperatures employing the thin film pyrometry technique. Laser diagnostics can provide accurate measurements with temporal and spatial resolution essential to establishing a scientific base for combustion technology. These measurements will improve our understanding of spray droplet vaporization, burner stabilization, and control.